A Study of Deep Western Boundary Current Variability Using Hydrography, Tracers, and Lagrangian Drifters

A field study of the variability of the North Atlantic Deep Western Boundary Current (DWBC) will be conducted using a combination of experimental approaches: hydrography, chemical tracers and Lagrangian floats. The main objectives of the study are to determine the synoptic velocity and water mass structure of the DWBC and determine the fluid parcel pathways in the DWBC and identify the regions of exchange with the interior.